Electrochemistry in the Undergraduate Curriculum

The goal of this project is to improve the analytical chemistry education of undergraduate students at Avila College. In recent years there has been great expansion both in the variety and utility of electrochemical methods of analysis and in the development of equipment controlled by microprocessors. Through this project students will work with a Bioanalytical Systems electrochemical analyzer, and will gain first-hand laboratory experience with modern microprocessor-controlled instrumentation capable of performing seventeen different methods of electrochemical analysis. Students in instrumental analysis, physical chemistry, organic chemistry, biochemistry, and undergraduate research will use this versatile instrument for a variety of applications, including comparisons of pulse and cyclic voltammetry, use of DC polarography for analysis of vitamins, comparisons of different types of electrodes, and kinetic studies.